RUI: Mechanisms of Synchronized Oscillatory Activity in the Nervous System

The basic patterns of rhythmic motor behavior are generated by central nervous system circuits called neural oscillators. The oscillatory activity under investigation in this study, induced by suppression of calcium currents, is unusual in that it depends on sodium currents (rather than calcium currents as observed in other animals) and because the oscillations occur synchronously in all neurons of the same invertebrate nervous systems. These novel features will allow several questions of broad significance to be addressed. First, what cellular mechanisms generate these sodium-dependent oscillations and why are sodium-dependent oscillators so rare compared to calcium-dependent oscillators? Second, what cellular mechanisms are used to synchronize oscillatory activity within neural networks? To answer these questions, Dr. Angstadt will 1) develop an isolated neuron preparation that expresses oscillatory activity similar to that observed in intact ganglia, 2) identify and characterize the role of persistent ionic currents in generating the oscillations, and 3) determine the cellular mechanisms responsible for synchronizing the oscillations in different neurons. His approach will be to remove identified neurons from invertebrate ganglia, isolate these neurons in cell culture, and study their ionic currents using voltage clamp techniques. In other experiments, mechanisms underlying synchronization of oscillations will be investigated in experiments on intact ganglia. These studies are important because they will further understanding of persistent sodium conductances in nerve cells, including their functional role in the generation of oscillatory activity, and may provide a model system for studies of cellular mechanisms underlying the synchronized neuronal activity associated with epileptic and other seizures in more complex nervous systems.